Short Course for Undergraduate College Teachers on Mathematical Modeling

In order to encourage a greater percentage of talented students to pursue careers in mathematics, the physical sciences, and engineering, college teachers must be knowledgeable in the applications of mathematics and recent developments which should be incorporated into the undergraduate curriculum. Instruction to college teachers of mathematics through summer short courses and workshops has proven to be one mechanism to accomplish these goals. A week-long short course will be conducted for undergraduate college teachers of mathematics on the topic of mathematical modeling. The objectives of the short course are to provide college teachers in the mathematical sciences with the knowledge necessary to supplement existing courses with mathematical models, develop mathematical modeling courses at their home institutions, and educate colleagues through seminars and workshops. There will be twelve hours of in-class instruction on models suitable for undergraduate students together with the associate pedagogy. There will be an additional six hours of in- class discussion in which specific mathematical models will be developed and participant assignments will be discussed. Computers and associated software will be used by the instructors and students in the development and solution of models. In addition to NSF support, participants will contribute about 15% in travel costs, and staff will contribute another 15% of their time.